Feedback Control Real-Time Scheduling

Proposal Title - Feedback Control Real-Time Scheduling
PIs - J. Stankovic, S. Son and G. Tao

Abstract

Despite the significant body of results in real-time scheduling, many
real world problems are not easily supported. While algorithms such as
Earliest Deadline First, Rate Monotonic, and the Spring scheduling
algorithm can support sophisticated task set characteristics (such as
deadlines, precedence constraints, shared resources, jitter, etc.), they
are all "open loop" scheduling algorithms. Open loop refers to the
fact that once schedules are created they are not "adjusted" based
on continuous feedback. While open-loop scheduling algorithms can
perform well in static or dynamic systems in which the workloads can
be accuratedly modeled, they can perform poorly in unpredictable dynamic
systems, i.e., systems whose workloads cannot be accurately modeled.
Unfortunately, many real-world complex systems are dynamic and
unpredictable. In addition, most scheduling paradigms assume that
timing requirements are known and fixed, while in real systems timing
requirements are more flexible. For example, instead of a single
fixed deadline for a task, a deadline range might be acceptable to
the physical system. If this range was passed to the scheduling system,
more robust scheduling could be possible.

We propose to develop the
beginnings of a new scheduling paradigm, which we call feedback
control real-time scheduling. Feedback control real-time scheduling will
define error terms for schedules, monitor the error, and continuously adjust
the schedules to maintain stable performance. Feedback control real-time
scheduling will be able to deal with dynamic systems that are both resource
insufficient and with unpredictable workload. It can also be integrated
with flexible real-time requirements. We plan to base this new paradigm
on the theory and practice of control theory, adaptive control theory,
and stochastic control. In this proposed research we will begin by
integrating practical feedback control techniques into scheduling
algorithms. These scheduling algorithms regard the computer system
as a control system with the scheduler as the controller. The
outcome from this beginning study
should include a practical scheduling algorithm, plus some
experimental evidence to use in the long-term endeavor of creating
a theory and practice of feedback control scheduling. Such results will
apply to many real world systems including real-time database applications,
defense applications, agile manufacturing, and distributed multimedia.
The results would be that these systems meet significantly more deadlines
thereby improving the productivity of a manufacturing plant or an on-line
real-time database system. General principles developed in this research
should also be applicable to feedback scheduling in non-real-time systems.
This could improve the throughput and performance of general timesharing
systems.